Partnership for Research and Education in Materials (PREM) Diversity Workshop

In this program we propose to invite a cohort of PREM undergraduate scholars who will engage their peers, materials researchers, from graduate students to PhD-level scientists and engineers, and other stakeholders in the materials research community at the 2013 Fall Meeting of the Materials Research Society. The program will provide professional and leadership development, and networking opportunities for the students from the PREM attending the program. They will be able to present their research in a special poster session. In addition, they will be invited to join the MRS Mentoring Program. The program will also highlight the importance of excellence, integrity, and service in the interest of society as guiding principles in science and engineering careers.